RUI: Combined First Principles Theory and Simulation Study of Displacive Surface Reconstructions: W(001) and Mo(001) (Materials Research)

This proposal for studying the reconstruction of surfaces by combining electronic structure and computer simulation techniques is from an undergraduate institution. The principal investigator, Professor L. Roelofs is a leader in the field of statistical mechanics of surfaces and is eminently qualified to do the work. The problems proposed can add to our fundamental understanding of surface phenomena and may impact on technology. A 30-month award is recommended with highest priority.